Business Disruption and Initial Recovery in the Whittier Narrows Earthquake

This project focuses on small business distruption resulting from the October 1, 1987 Whittier Narrows California earthquake and the initial recovery plans of a sample of affected businesses. The objectives of the project are to: (1) identify the significant components of earthquake-related business disruption and (2) develop a model identifying factors that impede or facilitate the recovery process for businesses.